Development of Analytical and Behavioral Models for Evaluation of Compaction Induced Stresses and Deformations

Compaction-induced stresses, as well as their associated deformations, can be of major importance in analysis of many types of engineered earth structures and soil-structure systems. They can significantly affect earth pressures, soil-structure interaction, hydraulic fracturing and separation, and the strength and behavior of compacted soil masses. This research is intended to refine and verify recently developed incremental finite element analysis procedures and behavioral models for hysteretic soil loading and unloading, extend these models and analytical procedures to consider cohesive soils, and develop a reliable basis for establishing modeling parameters critical to the analytical procedures developed. The research will include laboratory testing, development and refinement of behavioral models and analytical procedures, and analysis of field studies. This research will directly address the issue of the variation of stress and associated time effects for soil masses derived from engineering processes and will utilize the most recently developed laboratory techniques for stress measurements.